Upgrade of Computer Facilities for the Seismology Research Group at Saint Louis University

0214259
Koper

This grant provides partial support for an upgrade of the high-performance computing environment for geophysicists at Saint Louis University. Research carried out by the group is wide-ranging and includes Earth structure studies, seismic source studies, seismic hazard analysis, application of space-based remote sensing data to tectonic problems, and development of freely distributed software. The grant will especially benefit three recently hired assistant professors (Koper, Kusky and Zhu) in establishing research programs.

***